Geometric Group Theory and the Topology of Aspherical Manifolds

Abstract

Award: DMS-0104026
Principal Investigator: Michael W. Davis

This is a proposal for research in geometric group theory
focusing on Coxeter groups, Artin groups, and mapping class
groups of surfaces. The main problems to be addressed are the
following.
(1) For which Coxeter groups is the Coxeter diagram uniquely
determined by the group? For which Coxeter groups is the
fundamental generating set uniquely determined (up to
conjugation) by the group? For which Coxeter groups is the outer
automorphism group finite?
(2) Are all Artin groups linear groups?
(3) Find a formula for the cohomology with compact supports of a
building. Likewise for the Salvetti complex of an Artin group.
(4) Determine the l^2 Betti numbers of cubical manifolds
associated to right-angled Coxeter groups. Do they vanish outside
the middle dimension? This would imply the Flag Complex
Conjecture concerning triangulations of odd-dimensional spheres
and has implications for graph embeddings.
(5) Develop a theory of mock reflection groups. This is a class of
groups similar to Coxeter groups which arise as transformations
of blow-ups of hyperplane arrangements.
(6) Is the Torelli subgroup of the mapping class groups of a
surface of genus at least three finitely generated?
(7) Can a word hyperbolic group be the fundamental group of a
surface by surface bundle? Must all finitely presented non word
hyperbolic groups contain a Baumslag-Solitar group or an abelian
group of rank two?

Group theory arises from the study of symmetries of an
object. When this object has an interesting geometric structure,
one can use geometric techniques to better understand the group
of symmetries. This project involves the study of certain
families of groups which arise in a broad range of mathematical
and physical contexts, such as the study of crystal structures
and the intertwining of DNA. These groups are associated to rich
and beautiful geometric structures which lend themselves to the
techniques of geometric group theory.